An Undergraduate Laboratory for Real Time Computing and Control.

A real time computing laboratory will be set up under this project. It will provide the facilities to support a three hour course for undergraduate engineering students in the fundamentals of real time computing and control. The laboratory will consist of a DEC Microvax II used as a software development station tied by Ethernet to another DEC Microvax II running Labstar real time software and acting as a controller of various equipment. Among the items to be controlled include a robot and computer numerically controlled machines. The system will include the capabilities to support up to twenty users developing software and then running their software individually through the controller.